Environmental Experimentation Laboratory

This project permits undergraduate students to experiment with the effects of variations in heat, sound and light on human senses. This experience prepares these students to incorporate environmental concepts into the building design process. The equipment used to support this project includes: temperature sensors, thermal monitoring system, thermographs, thermohygrographs, heat pump demonstrator, photometer and light demonstration box along with a microcomputer and environmental software. This award is being matched by an equal sum from the grantee.